RPG: Comparative Physiology of Bivalves and Brachiopods: Evidence for Evolution and Escalation?

9405300 Rhodes PI will investigate, in collaboration with members of the British Antarctic Survey, the energy needs of the living polar brachiopod species, Liothyrella uva, and compare it to a sympatric bivalve species. This work will lead to a larger-scale comparative study of species from temperate and tropical waters. The study is intended to test the hypothesis that large-scale changes in diversity and shifts in habitat, inferred from the fossil record, have been shaped primarily by individual-level biological interactions, a hotly debated topic. Competing hypotheses are that chance and environmental changes account for most of the large- scale patterns found during the history of life.